Analysis, Probability, and Logic: A Conference in Honor of Edward Nelson

ABSTRACT: Analysis, Probability and Logic: A conference in honor of Edward Nelson

DMS: 0404763

PI: Eric Carlen)

Inst: Georgia Tech

A conference on the above theme will take place June 17-20 at the Pacific Institute of Mathematical Sciences (Alberta). The first two days will have several goals, with the latter two days devoted to workshop-like opportunities for further interaction among the participants. The funding from NSF will support travel grants for about 5 younger speakers, and travel support for a similar number of postdoctoral students and graduate students. A proceedings will be published, to further disseminate information.